Small Grants for Exploratory Research: Skin-Friction Drag in the Turbulent Boundary Layer

With support from a Small Grant for Exploratory Research, a search will be conducted for evidence that there exists a regime of very large Reynolds numbers in which turbulence characteristics differ from those below this regime. Both existing boundary layer turbulence measurements, and new data from a large Reynolds numbers fully developed pipe flow experiment to be built, will be searched for this evidence. Focus is on differences between the two conjectured regimes in the coupling of fluctuations very near the wall and those further out into the flow. Discovery of changes in turbulence characteristics at very high Reynolds numbers would contradict the commonly held view that turbulence characteristics become more universal as Reynolds number increases. This would impact the construction of predictive turbulence models and improve their accuracy and utility for various engineering systems.